Equipment for a Flow Imaging and Control Laboratory

Undergraduate education in fluid dynamics can be greatly improved if analytical descriptions are complemented by the experience of visualizing and controlling the dynamic behavior of real flow fields. This project employs modern multidimensional flow diagnostics and digital image processing, powerful and convenient educational tools, which take the student far beyond the usual scope of laboratory courses. The student can see unsteady flows around complex configurations. These techniques are incorporated into assignments in a required first course in fluid mechanics. A junior-level laboratory employs flow visualization from both the Eulerian and Lagrangian viewpoints. Senior-level elective courses teach advanced flow diagnostics and flow control techniques, while Special Problem courses facilitate individual undergraduate research projects in these areas. Argonion laser beams are expanded into sheets, with an acousto-optic beam modulator for fast, controlled strobing. A laser schlieren system illuminates density variations. Images will be captured through fast-shuttered CCD-array videocameras and analyzed using computer workstations. Planar velocimetry and vortex and shock tracking are used for analysis of the spatial and temporal evolution of flows. These will be used along with existing flow facilities and single-point quantitative diagnostics, to study flow control. The project makes possible the incorporation of modern unsteady fluid mechanics into the undergraduate curriculum.